Research in Nuclear Physics and Related Fields

9420087 Balamuth Research will be carried out in high energy electron scattering with the goals of determining the spin structure of nucleons and observing manifestations of quark and gluon degrees of freedom in the nucleon. With funding in the present proposal, a new electron polarimeter will be constructed for use in the Hermes experiment at the HERA facility in Germany, where this research will be carried out. Research in this area will advance our understanding of the nucleon in terms of constituent quarks and sea-quarks (quark-antiquark pairs surrounding the constituent quarks). This topic is among the most exciting in nuclear and particle physics. Education of graduate students is integral to this grant and to the overall research program which will be carried out. ***